Collaborative Research: III: Small: Entity- and Event-driven Media Bias Detection

Democracy is shaped by public opinion, and public opinion in turn is significantly influenced by the news that is read, watched, and listened to. It is thus essential for an informed public to understand how the news they consume is being selected, packaged, and presented. This project aims to build computational systems to detect and quantify how media ideology affects the creation and presentation of news at the level of articles and their constituent events. This project will promote the transparency of news production and enhance public awareness of media decisions. The developed tools can effectively and efficiently support the measurement of media ideology at organization- and article-levels, which facilitates research in broad areas, including political science, social science, and communications. The proposed research will involve graduate and undergraduate students from a diverse array of backgrounds, especially underrepresented groups. The developed datasets and methods will form the basis of modules in newly developed courses. The knowledge produced in the project will be distributed to the public via demos, published blogs, talks at podcasts, and guest essays to newspapers.

This project will examine how media bias can result from the packaging of news via the selection and organization of contents presented in news articles, and develop entity- and event-driven computational models for detecting ideological content selection and predicting article-level ideology. Three main research tasks will be explored. First, discourse-aware event categorization models will be developed to distinguish descriptions of main events from other context-informing events and indirectly-related events. Second, an entity- and event-driven contextual representation learning framework will be built to detect media bias by capturing relations between entities and events. Third, adversarial learning will be investigated to predict the political ideology of a news article with a fine-grained score by disentangling media-specific languages from ideological content.